Adapting and Implementing the SCALE-UP Approach in Statics, Dynamics, and Multivariate Calculus

(59-Engineering:Other) A multidisciplinary team of faculty at Clemson is working to
deliver more effective Statics and Dynamics instruction. Their work builds particularly on
two other NSF-funded projects. The project is developing cooperative learning
activities that are complementary to those developed through Statics: The Next
Generation and delivering them using the Student-Centered Activities for Large
Enrollment University Programs (SCALE-UP) model, teaching large studio classes
where the primary emphasis is on learning by guided inquiry instead of by
listening. The present lecture approach is being revised significantly and the
two sequential courses are being integrated according to the needs of students in
mechanical engineering and civil engineering. A partnership to include learning
exercises from multivariate calculus is helping students transfer knowledge and
develop a more robust understanding of the course content. Improvements in student
learning is being measured in terms of normalized gain on existing conceptual tests.
Faculty development activities, including workshops and mentoring, are nurturing a
cadre of faculty who are learning to design and implement cooperative learning
activities. The mentoring of faculty in large-enrollment classes is helping
expand the use of these teaching methods throughout the curriculum, and the
materials developed in this project are applicable to statics and dynamics
courses at other universities.